Faculty Development Award

This award is funded under the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

This Faculty Development Award supports the effective integration of research, teaching and outreach. The project goals are to investigate the efficacy of professional development opportunities for educators in chemistry and integrated science. These professional development activities will integrate art and highlight the aesthetic quality of science while addressing state and national science standards. The Discovery Corps Fellowship Program supported postdoctoral and professional development models that combined research expertise with professional service. Discovery Corps Postdoctoral Fellows are eligible to apply for this Faculty Development Award.